Curation of the Paul Rowe Archaeological Collection

Paul Rowe, an amateur archaeologist, made surface collections and excavated archaeological materials from over 200 sites in southwestern Iowa. Because of the care with which he worked and the extensive documentation associated with these materials, they are widely used and provide an important data base. The collection includes lithics, ceramics, and both worked and unworked faunal remains. The materials are currently held by several institutions. With National Science Foundation support, Dr. William Green and his colleagues will continue their work to make these materials of maximum research use. In this next phase of their project, the team will correlate objects with the relevant documentation and ascertain the specific sites from which each collection derives. Detailed data will be entered into the Office of the State Archaeologist's files, and the objects themselves will be sorted by site and by material class within each site, labeled by catalog number, and boxed in standard-size storage containers. They will be added to the State Artifact Repository. One portion of the collection is held by the Mills County Historical Museum, and it will be surveyed to determine physical condition and the nature of its documentation. Recommendations for treatment will be developed. The Rowe collection is important because it can provide insight into prehistoric cultural development in the Midwest United States. Because of storage and documentation problems, the collection cannot now be used efficiently. The work by Dr. Green and colleagues will serve to remedy this situation.